Transition to Adulthood

ABSTRACT Why do adolescents engage in different types of activities? Why do some work hard on their school subjects while others get involved in other activities, including problem behaviors? Do these activity choices relate to the educational, vocational, and family options they pursue in their early twenties? This is a longitudinal follow-up to an existing large scale data set. These investigators have developed a theoretical framework to investigate such questions and have used this model to study the ontogeny of education and role-related choices during adolescence in a sample of 2380 youths. This project follows this sample as they make the transition into adulthood and will assess the utility of the framework for predicting adult role choices and look at the long term sequelae of adolescent behavior patterns and social experiences. Two types of data will be collected. A telephone interview will be conducted, and data will be merged with questionnaire data collected with other support. These data will then be used to test basic theoretical predictions.